Development of Bioanalytical Experiments

The Department of Chemistry is developing a series of experiments which are being incorporated into an instrumental analysis laboratory manual which emphasizes bioanalytical determinations, includes standard laboratory practices, and incorporates an ordering of experiments that is related to actual steps in problem-solving. The project centers around improving the instruction which is involved in instrumental and physical measurements courses which are usually offered in the third or fourth year of study. The problems common to such courses which this project is working to overcome include insufficient emphasis on bioanalytical experiments, an order of topics covered that is based on the complexity of a technique rather than the steps followed in problem-solving, and pedagogy that is overly biased toward illustration of a measurement concept at the expense of standard laboratory practices.